Mathematical Sciences: Normal Forms and Geometry of Control Structure

The principal investigator will work on a broad class of problems from nonlinear control theory, including local and global controllability. A specific goal will be to increase the understanding of invariants and normal forms of control systems with feedback. The techniques of nonlinear control have many practical applications from robotics to landing a space probe on some distant planet. It is one example of the power and applicability of nonlinear mathematics in the modern world.